Computer and Data Aquisition Board

9500007 Hagmann A PC and data acquisition board will be purchased to provide feed back control of an experimental scanning tunneling microscope. This equipment will upgrade existing hardware to obtain high resolution images using more advanced algorithms without significant distortion due to drift. ***